A Variable Rate Real-Time Speech and Video Coder from 19.2 kbps to 64 kbps at 10 Frames/Sec.

The company proposes to design and develop a real-time video and speech encoder/decoder system that combines a high quality, low bit-rate, full color video coder with a high quality, very low bit-rate speech coder. The target bit-rate for the combined video and speech will range from 19.2 kbps to 64 kbps for frames of size 352x288 at 10 frames per second. Commercial uses include video conferencing, video telephony and e-mail, remote education, and communications aids for the deaf.